NSF Student Travel Grant for 2023 IEEE International Conference on Computer Communications (INFOCOM)

This project will support students at U.S. institutions to attend the 2023 IEEE International Conference on Computer Communications (INFOCOM) conference, May 17-20 in the New York City area. This student travel support will enable sharing scientific information and stimulating research interests for U.S. based graduate students in the field of communications and networking. Attending IEEE INFOCOM will be highly valuable for graduate students. Not only will they be exposed to the state-of-the-art in the field, but they will also have the opportunity to interact with peers from institutions worldwide, meet with leading researchers, and take part in discussions that are likely to shape the future of the field.